Analysis Techniques and Tools for Building Robust Software

The proposed project will focus on techniques and tools for high-precision
static and dynamic analyses of software. Current static analyzers often
suffer from a high spurious error ratio, while dynamic analysis tools
generally provide only partial coverage of program executions. It will be
studied how to build on techniques from program abstraction, model
checking, and theorem proving, to improve this status quo. At its core, the
proposal is to investigate the trade-off between the quality of the
analysis results, and the computational effort needed to obtain them.

The broad impact will be to enable the creation of software that is more
robust, with shorter development times. In addition, it is expected that
the research will lead to a better scientific understanding of several core
techniques. A key component of the proposal is to build effective tools
that incorporate these research results. These tools will enable the
application of our research ideas to the NASA testbed, and communicate them
to the programming community at large. The research results are also
expected to be communicated to the research community through conference
and journal publications.